Reactive-Liquid Rotational Molding

This research is focused on a variety of problems related to the development of rotational molding techniques involving reactive liquids and/or thermosets. Various coating flow phenomena will be examined, primarily through mathematical analysis in certain limiting conditions, and also with more generally valid numerical modeling techniques. Film thickness jump phenomena uncovered in a prior investigation will be further explored, as will stability of such films. ***//